ITR: Improving the Security of Quantum Cryptography with Modified Coherent State

Intellectual Merit
Progress has been made in producing single photon states. But so far those sources have
small efficiency and are wavelength dependent and are limited for practical applications.
Recently a new scheme was proposed and demonstrated for producing photon source
with sub-Poissonian photon statistics. The scheme relies on a two-photon quantum
interference phenomenon to reduce and eventually cancel the two-photon events from a
coherent state. In this program, we propose to implement the scheme in an optical
communication environment. More specifically, we will start with a fiber pulsed laser as
the primary source and use a combination of wave guide nonlinear optical materials to
produce a two-photon state for canceling the two-photon events in a coherent state. The
technical challenge will primarily be the temporal mode match for a complete destructive
two-photon interference. Such a source has the advantages of high secure data rate,
well-defined direction and wavelength independence for practical application in
quantum cryptography. This source can also be used to form a three-photon interferometer for
nonlocality test of quantum mechanics.

Broader Impacts
Quantum cryptography, when implemented in the correct condition, will provide
unbreakable codes for secure communication. The potential benefit of this technology is
tremendous, given the current status of security issue in information technology. The
proposed program will significantly improve the applicability of quantum cryptography.
Participation of graduate students and undergraduate students in the research is an
integral part of the proposed program, which will train and prepare next generation
quantum physicists for the information age in the new century. Results of the research
will be published in international journals to enhance scientific and technological
understanding.